Acquisition of a 300 MHz Multinuclear NMR Spectrometer for Chemical Research

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Tulane University will acquire a 300 MHz Multinuclear NMR Spectrometer. This equipment will enable researchers to carry out research on synthetic organic and inorganic chemistry, natural product characterization and mechanistic chemistry. NMR will be used in the characterization of new main group and organometallic compounds, natural products, novel organic precursors for organic materials development, bioactive organic reagents, supramolecular transition metal complexes, and analysis of products from organic reactions carried out in zeolites. In addition, faculty from Loyola University and Xavier University will have access to the equipment.
Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry and biochemistry.